U.S.-Latin American Regional Workshop on Molecular Approaches to Membrane Biophysics; November 20-December 7, 1991, Santiago, Chile

This award primarily supports U.S. participation in a U.S.-Latin American Regional Workshop on Molecular Approaches to Membrane Biophysics, held at the Centro de Estudios Cientificos de Santiago (CECS), Chile, November 20-December 7, 1991. Organizers are Michael White, University of Pennsylvania, and Pedro Labarca, CECS. The purposes of the workshop are: to convene U.S.- Latin American researchers in membrane biophysics and biochemistry, for exchanging ideas; to introduce Latin American participants to basic principles of molecular biology applied to membrane biophysics; and to develop collaboration between Latin American biophysicists and U.S. researchers using molecular biological approaches to membrane biophysics. The U.S. side will benefit from establishment of Latin American contacts to develop research themes for future projects. The Latin American participants will gain information about molecular biology applied to membrane biophysics, and from exchanging ideas for future U.S. collaboration. The workshop's topics and agenda fulfill goals of the Science in Developing Countries program.